Experimental Physics Research Program at Columbia University/Nevis Laboratories

The Columbia University Nevis Labs experimental high energy physics program encompasses a broad spectrum of experiments in particle physics, including ATLAS at the CERN Large Hadron Collider, and several neutrino experiments, including the Short Baseline Neutrino (SBN) program, and the Deep Underground Neutrino Experiment (DUNE), based around Fermilab, and the Coherent Captain Mills (CCM) experiment. Particle physics considers a vast range of fundamental questions about the universe, from subatomic to cosmic scales, including the nature of dark matter, the source of the matter-antimatter asymmetry, and whether new fundamental particles or interactions exist. These questions are investigated through detailed measurements of the Higgs boson and of neutrinos, as well as explorations of the energy and intensity frontiers. In addition to exploring these pressing science questions, the project will develop state-of-the-art instrumentation and also artificial intelligence/machine-learning (AI/ML) techniques, including cross-disciplinary collaborations with electrical engineering and computer science departments; these activities provide postdocs, graduate students and undergraduates with valuable skills and hands-on experience, contributing to training of the future technologically-sophisticated workforce, and also have potential broad applications in other aspects of science and society. The Columbia group also places a high priority on education and outreach, engaging high school students and undergraduates in physics research activities. It also invests heavily in efforts to bring the excitement of our science to the general public, including via individual faculty outreach efforts (lectures, tours, etc.) and structured programs like the longstanding monthly Science-on-Hudson lectures for the general public.

The Columbia University Nevis Labs experimental high energy physics program encompasses a broad spectrum of experiments in particle physics. Columbia physicists are playing leading roles in the ATLAS experiment at the CERN Large Hadron Collider, and in several neutrino experiments, including the Short Baseline Neutrino (SBN) program, and the Deep Underground Neutrino Experiment (DUNE), based around Fermilab, and the Coherent Captain Mills (CCM) experiment. Particle physics considers a vast range of fundamental questions about our universe, from subatomic to cosmic scales. Supersymmetry (SUSY), if it exists, could yield candidates for dark matter. The mystery of dark energy may be related to the Higgs boson, which was discovered at the LHC and can be studied with respect to these questions. If extra spacetime dimensions exist, they may be accessible at the LHC. The project will also tackle the question of the nature of fundamental particles, by studying the Higgs boson (ATLAS) and neutrinos (MicroBooNE, SBN, DUNE, and CCM), and, through precision measurements, probe higher energy scales. The neutrino program is addressing key questions related to the number of neutrino species and fundamental symmetries between neutrinos and antineutrinos. Unresolved short-baseline experimental neutrino anomalies accumulated over the past few decades may be hints of new interactions or new physics such as sterile neutrinos or “dark sector” physics, which the Columbia program is actively exploring. In addition, the project develops state-of-the-art instrumentation and also artificial intelligence/machine-learning (AI/ML) techniques, including cross-disciplinary collaborations with electrical engineering and computer science departments; these activities provide postdocs, graduate students and undergraduates with valuable skills and hands-on experience, contributing to training of the future technologically-sophisticated workforce, and also have potential broad applications in other aspects of science and society. The Columbia group provides overall leadership to the NSF MREFC support of the ATLAS HL-LHC upgrade, and has likewise led readout electronics developments for the neutrino program. The group also places a high priority on education and outreach, engaging high school students and undergraduates in physics research activities. It also invests heavily in efforts to bring the excitement of science to the general public, including via individual faculty outreach efforts (lectures, tours, etc.) and structured programs like the longstanding monthly Science-on-Hudson lectures for the general public, as well as the Research Experience for Undergraduates (REU) Site that has been operating every summer since 2001.